Mathematical Sciences: Core Support of the Committee on Applied and Theoretical Statistics

The Committee on Applied and Theoretical Statistics (CATS) is concerned with issues involving and affecting the statistical sciences, statistics education, and uses of statistics. The Committee occupies a pivotal position in the statistical community, providing expertise in methodology and policy formulation. Members of CATS are appointed by the Chairman of the National Research Council. This project is for core funding for CATS. CATS activities supported exclusively by core funding are: one CATS meeting, CATS participation in the annual Board on Mathematical Sciences Department Chairs Colloquium, the initiation and administration of all CATS projects, and continuous oversight of all CATS-related activities. These include giving recommendations on research directions to federal agencies and reports on education in the statistical sciences, interaction of the statistical sciences with other areas, the health of the statistical sciences, and emerging research directions.